REU Site: Undergraduate Research in Molecular Biosciences

Biochemistry/molecular biology employs methods from chemistry, physics, cell biology, microbiology and genetics to study the structure and function of complex biomolecules, how they operate in living organisms and how alterations in these molecules perturb the living state. Biochemistry/molecular biology integrates didactic and experimental material learned in many basic courses. The Program in Molecular Biosciences will enable qualified undergraduates to do independent research projects, using a variety of experimental approaches. The program is designed to offer the participants a variety of research areas from which to choose a meaningful and exciting independent study project. Students will learn how to formulate and test hypotheses and develop the ability to troubleshoot and problem-solve when confronted with the unexpected. They will have access and training in the use of state-of-the-art instrumentation. Through weekly meetings and a research poster presentation, students will develop the ability to communicate their results to their peers. The program will provide appropriate role models for these students that will reinforce their excitement for a scientific research career and will emphasize to all participants the gender and diversity issues that impact research careers in science. Through an International Internship, the program will provide the opportunity for undergraduates who demonstrate superior research aptitude to work in a foreign host laboratory on a collaborative research project in which they have received prior training. These students will learn to appreciate scientific research as an international endeavor. The program will render assistance to all participants in preparing and applying to graduate schools and for fellowships.